Topics in Unsteady Vortical Flows in Three Dimensions

The investigator studies two related but different aspecta of
vortex dynamics in three space dimensions. The first project
concerns the global regularity of Euler flows in three dimensions.
This important outstanding problem of applied analysis is attacked
by the investigator and colleagues with the aim of showing that,
under appropriate conditions of flow topology, global regularity
is obtained. In addition an estimate of the time rate of growth
of the maximum vorticity should be accessible. The approach
utilizes maximization of the growth of vorticity and a variational
construction of an artificial structure (the "cocoon") near the
vorticity maximum. The second project concerns analysis together
with numerical and physical experiments of modes of hovering in
flapping flight. An oscillating flow facility already in use
provides the starting point for investigations of the vortical
flow in the vicinity of small flapping hoverers. The investigator
and the research staff of the CIMS Applied Mathematics Laboratory
develop analytical and numerical models for the study of hovering
flight, motivated by the current interest in micro-aerodynamic
vehicles.

The project deals with two related problems involving the
difficult problem of analysis of three-dimensional fields of fluid
motion and the complex eddying motions that occur in many
important time-dependent flows. The first problem that the
investigator and his colleagues study is the theoretical question
of "blowup" of solutions of Euler's equations, wherein the flow
develops a rough or singular structure after a finite time.
Although much effort has been devoted to trying to find such
behavior in fluid flows, the question remains open. The
contention the investigator explores is that in fact for most
flows, especially those for which the "knottedness" of the
vorticity is sufficiently simple, blowup does not occur. This
regularity property of the flows can be established in some simple
cases, and methods under development by the investigator promise
to be applicable to a larger class, whose size needs to be
determined. The study has important implications for global
analysis of Euler flows, and perhaps also for the numerical
computation of these flows. The second project is different in
emphasis and brings into play a combination of analysis with
numerical and physical experiments to study the hovering flight of
small flapping flyers of the kind envisioned in the context of
micro-aerodynamic flight. This work aims to understand the
eddying motions produced by certain kinds of flapping structures,
and the mechanism of lift production in various cases of hovering
flight. The work has possible applications to the engineering
design of extremely small air vehicles, as well as a bearing on
the understanding of insect flight.